Molecular and Genetic Analysis of Tobamovirus Movement Proteins

This project is focused toward increasing our understanding of the role(s) played by virally-encoded movement proteins (MP) in facilitating the transport of viral RNA between cells of the infected host plant. The research plan calls for the generation of a series of chimeric MPs, produced by genetic recombination of distantly-related tobamoviruses, in an effort to determine which protein motifs affect virulence, host specificity, and intercellular transport. The plan will also involve the expression and study of MP from sunn-hemp mosaic virus (SHMV) in transgenic plants to determine its effects on plasmodesmatal structure and sieving properties. Finally, photochemical crosslinking studies will be performed on inoculated protoplasts, to assess MP binding to RNA during infection and/or transport. %%% A major facet of the viral infection of host plants involves the intercellular movement of viral nucleic acids through plasmodesmata. This transport is facilitated by a series of viral proteins known collectively as the movement proteins. The generation of chimeric movement proteins is a creative approach to assess their specificity and function. This work will provide significant, new information on an important problem in plant pathology.